Engineering Research Equipment Grant: Fourier Transforms Infrared Spectrometer-Characterization and Applications of Polymer and Silane Modified Oxied Surface

This equipment proposal is for the purchase of a Fourier Transform Infrared/Internal Reflection Spectrometer (FTIR/IRS) for the study of chemically modified oxide surfaces (eg silica) and their applications. The modified surfaces will consist of a solid substrate modified by surface-graft polymerization or surface silylation. The proposed study of surface-grafting polymerization and silylation will consist of in situ studies of the kinetics and efficiency of surface activation and surface polymerization. This information will be used to support ongoing work on the synthesis of novel polymer-solid matrix resins for aqueous exclusion chromatography, adhesion enhancement in polymer composites, and rheology of interacting colloids as occur in the manufacture high performance ceramics.